Growth and Level of Aggregates

There are three parts to this study of economic growth and the level of economic aggregates. The first part focuses on adverse selection and aggregate employment. Preliminary work by the investigator suggests that market participation will be inefficient in an economy in which it is costly to distinguish between low and high quality workers. The project develops a general theory of market participation based on two different strands of theoretical research: imperfectly coordinated trading and strategic complementarities in production. The theory is extended to allow people to improve their jobs over time, to permit organizations such as firms to play a coordinating role, and to reflect different sectoral locations within markets. The importance of this inefficiency will be quantified and measured empirically. The second part develops a growth theory in which learning is the engine of growth. Information theory is used to derive the properties of the relationship between learning, technology and economic growth. The third part explores the idea that a society well-endowed with general skills will more easily take advantage of new technologies by learning them faster. Skilled labor will concentrate on new technologies, a result consistent with arguments in the old-product cycle literature.